Topics in Low Noise and Time-Varying Digital Signal Proces-sing

In this research program, two important problem areas in the field of digital signal processing are examined. The first topic deals with the design of finite-impulse response (FIR) digital filters with fixed length coefficients. For cases where the filter length is too long to make use of optimal techniques, the coefficients are quantized with an error spectrum shaping quantizer. This technique allows the error due to rounding to be weighted in a desired fashion within the frequency band. The second topic of research is in the area of linear time-varying signal processing. An important feature of such processing is that both the analysis and design can be approached within a standard framework, permitting the solution to be accomplished in a uniform manner.